U.S.-France Cooperative Research: Integration of Idiothetic Cues in Head Direction Cells

This three-year award provides support for US-France cooperative research on the neural mechanisms underlying spatial cognition. The collaboration involves researchers, Jeffrey S. Taube at Dartmouth College, Patricia Sharp at Yale University, and Alain Berthoz, Director of the Laboratory for the Physiology of Perception at the College de France. The investigators will perform experimental studies to determine the respective roles and mechanisms for integrating sensory and motor information in head orientation. The US investigators bring to this collaboration expertise in the area of head direction cells. This is complemented by the French investigators' expertise on physiological methods, mechanism of navigation, and vestibular systems. The project will advance understanding of how internal sensory cues contribute to navigation and neural mechanisms of navigation.